High Temperature Superconductors Induced by Ion Implantation

A method of growing thin films of the new high temperature superconducting materials is proposed. The method consists of implanting the atoms needed in the films directly from an ion accelerator.